Characterization of Adaptations to Large Cell Size in Epulopiscium sp.

Using Epulopiscium as a model, this project will address a fundamental problem faced
by all large cells; that is, how a large cell overcomes constraints imposed on it by the
diffusion coefficients of bioactive molecules. With cigar-shaped cells reaching 600 microns by
80 microns, Epulopiscium spp. are the largest heterotrophic bacteria described to date. The
presence of repetitive DNA located at the periphery of the cytoplasm may be a
significant adaptation to maintain large cell size and high metabolic activity in
Epulopiscium. This research project will further characterize this adaptation and its
impact on biomolecule production and distribution. These results will provide important
insights into the fundamental cellular issue of getting molecules (energy and nutrients) to
distinct locations within a cell in a timely fashion. The project provides significant
educational and training opportunities for graduate, undergraduate and high school
students interested in the sciences. Although Epulopiscium is exceptional in the
bacterial world it is an exciting model for conveying basic concepts of the bacterial cell.
The fact that Epulopiscium spp. are so large, but not pathogenic, makes them good
representatives of the microbial world, not only for biology students but for the general
public as well. To facilitate information flow, a website featuring Epulopiscium biology
will be developed. It will use Epulopiscium as a central model to introduce topics
ranging from nanobiotechnology to the diversity of low G+C Gram positive bacteria
(including information about pathogens like Bacillus anthracis).